An Interactive Videodisc Laboratory for Teaching Introduc- tory Undergraduate Earth Sciences

The University of Wisconsin, Stevens Point will purchase 12 interactive video disc learning stations and an image capture/processing system. The learning stations will be used to improve laboratory instruction in four introductory geography and geology courses serving approximately 5,000 students per year. Interactive video disc technology will be used to complement coventional instruction by providing tutorials, exercises, simulated field trips, modelling, slow-and accelerated-motion studies, etc. Both existing and newly authored materials will be used. The image capture/processing system will be used to prepare new video disc materials. The project builds on substantial pilot work carried out by the project director. The University of Wisconsin, Stevens Point will match the NSF grant with an equal amount of funds.